Dynamic Response of Thermal Engineering Systems

Laboratory and design education in mechanical engineering programs in the U.S. mostly focuses on steady-state processes. This project incorporates the study of dynamic response of thermal engineering systems into the upper-division laboratory and design courses in mechanical engineering. The project enables students to learn fundamental concepts and reasons concerning flow unsteadiness; to develop a better understanding of the physical principles governing transient engineering phenomena; and to study the dynamic response of thermal systems. The implementation of this project improves the laboratory and design education in transient studies of thermal systems. The project and its educational benefits are of interest to other engineering schools. The new equipment includes a reciprocating compressor, linear and nonlinear flowmeters, pressure transducers, digital oscilloscopes, a computer-based spectrum analyzer, and a torquemeter. These devices are being assembled into a test rig where time-dependent flows, pressures, torque, speed, and power are generated and studied. The instructional equipment is versatile and can be assembled into other test apparatus for future laboratory and design projects.